Planning: NSF FF: Planning: Building Teacher Capacity with AI for Artful Learning Through Cross-Disciplinary Collaboration in Elementary Education

This FINDERS Foundry award supports elementary teachers in using arts‑integrated lessons to build creativity, communication, and problem‑solving skills in STEM. Many teachers want to use arts‑based approaches but lack time, tools, and support. At the same time, schools are deciding how AI fits into learning in safe and responsible ways. This project will help teachers learn to use AI as a thoughtful partner during arts‑integrated STEM lessons. General classroom teachers and arts teachers will work together to design developmentally appropriate, cross‑disciplinary activities that fit local school policies and community expectations. The project aims to give teachers simple ways to blend drawing, movement, music, or drama with science and engineering ideas. By providing clear structures and responsible AI supports, the project hopes to make arts‑integrated STEM easier to use and more meaningful for students.

This FINDERS Foundry award develops a teacher‑facing collaborative tool paired with professional‑learning supports to enable cross‑disciplinary alignment of AI‑supported collaboration in grades 3–6. The work involves defining requirements for co‑design workflows, identifying standards‑alignment pathways across arts‑integrated STEM curricula, and documenting classroom‑routine patterns in a large school district. Technical tasks include establishing design constraints for multi‑teacher collaboration, specifying interaction structures that scaffold elementary‑grade AI‑supported teamwork, and evaluating feasibility across diverse classroom models. Outputs include wireframes, a feasibility memo, and a development roadmap for scalable adoption. The project builds coherent and enduring practices for integrating AI‑mediated collaboration in elementary arts‑integrated STEM instruction.